A Survey of the Earthworms of the Greater and Lesser Antilles

Earthworms show promise of being excellent indicators of vicariance events, due to their apparent failure to cross salt water. Unfortunately, so little is known about earthworms in the Caribbean Basin that they cannot be used to test any biogeographical hypotheses. This project aims to partially correct that deficiency by conducting a complete survey of the Greater Antilles and some of the Lesser Antilles. The Trigaster group of genera and the Central American and Antillean Notiodrilus will be revised based on the collections to be made. Data derived from the survey will be used to test the hypothesis that earthworms have not dispersed to the volcanic southern Lesser Antilles. This project will provide the distributional and taxonomic data necessary to begin work on larger biogeographical and geological questions about Caribbean Basin history, as well as on important species conservation and ecological concerns.